Presidential Young Investigator Award: Flexible Fixturing

A cohesive methodology for the design of flexible fixtures for machining centers utilizing a group technology (GT) approach will be undertaken. The research will entail six major steps: determine what tolerance and fixturings information should be included; determine an appropriate GT classification and coding scheme which can depict this information and be appended to standard codes; given standard GT information and the tolerance/fixturing information, etermine appropriate algorithms to automatically create part families; determine strategies to design flexible fixtures for a part family; implement a reul-based software system to design flexible fixtures; and validate procedures developed by designing, building and testing fixtures.